A Proposal for the collaboration between the University of Wisconsin-Milwaukee and the NSF I/UCRC in Ergonomics at Texas A&M University

This award provides funding for a two-year collaborative project between the NSF Industry/University Cooperative Research Center in Ergonomics at Texas A&M University and Professor Arun Garg from the University of Wisconsin-Milwaukee. The purpose of this proposal is to expand the intellectual capital of selected research projects at the Ergonomics I/UCRC through Dr. Garg's participation in several research projects. Dr. Garg will contribute to these projects by interacting with the students, faculty, and industrial partners on the design, analysis and interpretation of the selected studies. The expected outcome of the proposed collaboration would include higher quality research in ergonomics at the Center which should enhance the Center's reputation both in the scientific community as well as in industry.